Cultivating Hispanics and African Americans Reading, Math, Science (CHARMS) in Elementary Schools for Girls Conference

Led by STEM educators at Texas A&M University, this project is analyzing and sharing baseline data on the achievement of African American and Hispanic girls on national and state assessments. The objectives of the project are: (1) To conduct a critical analysis of National Assessment of Educational Progress (NAEP) and Texas Assessment of Knowledge and Skills (TAKS) achievement data for African American and Hispanic female students in grades 3-6 with a focus on sub-test objectives for science, mathematics, and reading over the years 2000-2010; (2) To organize a one-day conference for 100 teachers, administrators and parents from urban, rural and suburban school districts featuring presentation of the data analysis and a national speaker who will share information and lead discussion on why African American and Hispanic girls at the elementary level should begin to think about seeking STEM careers and the required expected academic preparations; (3) To provide conference participants with STEM career information and materials; and (4) To share results of the achievement data analysis at international/national conferences (National Council for Teachers of Mathematics, National Science Teachers Association, American Educational Research Association) and submit papers for publication in scholarly journals,

Quantitative and qualitative methodology will be used to respond to three research questions: (1) What are the differences in the academic achievement of African American and Hispanic girls in grades 3-6 on the National Assessment of Educational Progress (NAEP) and Texas Assessment of Knowledge and Skills (TAKS) during the years 2000-2010? (2) What are the voices of African American and Hispanic 6th grade girls about their TAKS test from third grade to sixth grade? (3) What is the impact of a one-day conference on raising the awareness level of educators and parents about academic achievement among African American and Hispanic girls on national and state assessment in grades 3-6 in reading, mathematics, and science? To address question number one, the study will determine if statistically significant differences exist among the variables of race, class, and gender by grades and subject on student performance on the NAEP and TAKS tests and sub-tests in the areas of reading, mathematics and science. To address question number two, a qualitative analysis will be conducted. Students will be interviewed and data will be transcribed, sorted, and categorized into themes. Member checks and triangulation of data will be used to establish validity and reliability of the findings. To address question number three, descriptive statistics will be used to analyze a Likert-type survey instrument that will be developed by the project PI and CoPIs to assess conference objectives. In addition, a purposive sample of participants (teachers and parents) will be interviewed about their participation in the conference and their responses analyzed using qualitative analysis.

With a focus on African American and Hispanic girls' academic achievement, the project will provide educators, parents and students through a conference venue and other outlets with valuable information to understand their competency in subjects that can impact their decisions to seek STEM careers.